Acquisition of High-Performance Scientific Computing Cluster for Theoretical Physics

This award will allow the Department of Physics at New York University
to set up a cluster of advanced workstations (48 nodes of dual 866 MHz
Pentium III processors) to support computationally intensive research
in a number of areas of theoretical physics and astrophysics. The
proposed research projects include:
1) properties of atmospheric particle showers induced by ultra-high-energy
cosmic rays [Farrar];
2) simulation of astrophysical magnetic fields [Farrar in collaboration with
Goodman and others];
3) magnetically controlled electrical transport in layered structures [Levy];
4) statistical mechanics of simple and complex fluids [Percus];
5) structure formation in the early universe [Scoccimarro and Zaldarriaga];
6) asymptotic freedom in two-dimensional $\sigma$-models, and the critical
behavior of Potts antiferromagnets and of self-avoiding random walk
[Sokal];and
7) confinement mechanisms in lattice quantum chromodynamics [Zwanziger].

The proposed research making use of this cluster will also provide
training in high-performance scientific computing for the Department's
graduate and undergraduate students, postdoctoral fellows, and visiting
faculty from other institutions, using a variety of programming languages
(Fortran, C, C++, Mathematica) and advanced scientific software. This
training in advanced computational techniques will be of benefit by
providing broadly applicable skills, not only to those graduate students
who pursue subsequent careers in academic research, but also to those who
go on to careers in industrial R+D and elsewhere in society.